Project INSITE

The Eagle-UnionCommunity School Corporation proposal seeks support to build upon and extend the work initiated with NSF support ( working partnership of many parts which is focusing on the use of modern technology for teaching science and mathematics. There are two major objectives of the project. E Objective I: Teachers in grades four through ten will integrate essential problem solving, critical thinking, and communications skills into the science curriculum using information technologies (electronic mail, online database searching, and CD-ROM). E Objective II: Each of the teachers will develop and implement at least one comprehensive student-based project. The projects will promote problem solving, critical thinking, and communication skills, and integrate the use of the information technologies. Over the three years of project support 120 teachers, 30 student teachers, and 5,600 students at in grades 4 - 10 will become involved in the program. The project leadership anticipates the involvement of an additional 5,000 students in each of the three years following completion of the NSF project.